Purchase of a 300 MHz NMR Spectrometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the University of Missouri-St. Louis in the purchase of a 300 MHz NMR. This equipment will enhance research in a number of areas including the following: Chemistry of Diplatinum Complexes Bridged by Dppc or Dppm Ligands, Metallaboranes Derived from Pentaborane(9) and Hexaborane(10), Silicon Oligomers and Polymers; Synthesis of Heavy-Metal X-ray Contrast Agents, Dioxirane Chemistry, and the Preparation and Reactions of Chiral 1-Hydroxy Phosphonates and Phosphonamides. Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.